Supersonic Source - FTMS

This renewal grant to Professor Ben S. Freiser at Purdue University is in the Analytical and Surface Chemistry Program and supports studies of gas-phase metal containing cluster ion reactions by mass spectrometric techniques. Supersonic and seed plasma sources will be used to generate the clusters and the measurement step will involve Fourier transform ion cyclotron resonance mass spectrometry. Particular emphasis will be placed on metal-carbon ion clusters, including metallo-carbohedrenes. The objectives of the work include the accumulation of fundamental information regarding the bonding and reactivity of these clusters, and development of a new approach to synthesis of macroscopic amounts of the materials. Collaborative theoretical studies will augment the former and additional collaborative work is involved in the synthesis investigations. Both collaborations involve other research groups on the Purdue campus. Cluster compounds have only recently been discovered and much is not known about their structure, bonding, and reactions. This project is focussed on obtaining just such information. Using apparatus available to the principal investigator which represents novel and/or unique approaches, the materials can be generated and their reactions subsequently studied by mass spectrometric techniques. In addition, the work may produce these materials in macroscopic amounts which would greatly accelerate developments in the area.